Mathematical Sciences: Problems in Statistical Modeling

Stochastic approximation techniques will be applied to develop computational algorithms for the statistical analysis of spatial processes and for the control of laboratory instruments. Both the practical implementation and theoretical properties of the algorithms will be investigated. New methods for locating variable-stabilizing transformations will be studied. These methods will be based on a nonparametric estimate of the variance function. These new techniques are promising for multivariate transformation families such as the shifted-power transformations and nonparametric spline transformations. Transformations will also be investigated in the context of density estimation. The method to be investigated consists of transforming the data to a density that can be accurately estimated by a kernel estimator, applying a kernel estimator, and transforming this estimate back to the original space to estimate the density of the original data. Source appointment is a methodology for attributing pollution to its sources by chemical mass balance. Source apportionment when the composition of one source is unknown will be investigated. Nonlinear regression will be studied when there are measurement errors in the independent variables and no replication.